F03 Symposium Q: Mechanical Properties of Nanostructured Materials and Nanocomposites; December 1-5, 2003; Boston, MA

Symposium Q
Mechanical Properties of Nanostructured Materials and Nanocomposites
to be held at the 2003 MRS Fall Meeting
Boston MA, during December 1-5, 2003
The main aim of this Symposium is to provide a critical, up-to-date review and discussion
on science and technology of nanostructured materials and nanocomposites, with
focuses placed on a fundamental understanding of the relationships between their
fabrication, structure, strength and ductility. The organizers aim to gather researchers
who will review recent advances in mechanical properties of nanostructured materials
and nanocomposites, assess the impact across materials science, and chart a course for
future work in research, fabrication, design, and application. The Symposium covers
nanoscience and nanoengineering of bulk and composite materials, thick coatings and
thin films with enhanced mechanical properties for structural and functional applications.
Particular emphasis is placed on bringing researchers working on theoretical and
modeling aspects closer to those working on developing processing, fabrication, and
characterization techniques in this new and rapidly growing area.
Project/Abstract Summary
This award will provide partial financial support of travel and registration fees for
graduate students, Post-doctoral researchers and invited speakers to attend the MRS
Symposium Q: Mechanical Properties of Nanostructured Materials and Nanocomposites,
which will be held in Boston, MA, from December 1-5, 2003. MRS meetings promote a
unique communication among materials researchers from academia, industry and
government for the advancement of interdisciplinary materials research. Symposium Q
creates a forum for researchers involved in nanoscience and nanoengineering of bulk and
composite materials, thick coatings and thin films with enhanced mechanical properties
for structural and functional applications. Invited speakers for the symposium include
well-known researchers from academia, industry and national laboratories, providing a
critical, up-to-date review and discussion on science and technology of nanomaterials
and nanocomposites, with focuses on a fundamental understanding of the relationships
among fabrication, structure, strength and ductility, and performance.
Prepared: 8/23/03